Shared Instrumentation for Confocal Ion Imaging in Living Cells

9318101 Nadler This is a request for shared instrumentation to image and quantitate ion levels and pH in physiological studies on living cells. The requested Noran Odyssey laser scanning con focal microscope will enhance the research of five members of the Department of Pharmacol ogy by allowing the use of novel and innovative experimental approaches. The Noran instru ment has been optimized for the imaging of living tissue in real time. It will be used to investigate the following issues: (1) effects of regulatory substances on stimulus evoked sodium and calcium accumulation in glutamate nerve terminals, (2) NMDA receptor plastici ty in kindling and ontogenesis, (3) role of axon sprouting in facilitating or inhibiting seizure discharge and propagation, (4) role of calcium transients in regulating the cell cycle, (5) role of calmodulin in regulating insulin secretion from pancreatic SYMBOL 98 \f "Symbol" cells, (6) mechanism by which excess calmodulin leads to cardiac hypertrophy, (7) effects of glutamate and GABAA recep tor activation on intracellular calcium and chloride levels in hippocampal neurons, (8) effects of growth stimuli on intracellular pH, (9) role of protein phosphatase activity in the regula tion of cellular calcium levels and DNA synthesis, (10) induction of the protein phosphatase inhibitor 1 gene by calcium and (11) initiation of seizures by spontaneous action potential firing in axon terminals. These studies are aimed at understanding a variety of signaling mechanisms fundamental to cellular physiology. They will also help explain changes in cellular physiology and cell cell communication that occur in response to excessive or inju rious stimuli. u ~ -H- ~CAL3118TMP U. ~CRD0F04TMP #U. ~CAL3527TMP b5 ~CRD142ATMP . ~CRD0F38TMP b5 ~MF0E37 TMP E: ~DOC085BTMP s9 ~CAL2701TMP T~; ~CRD216FTMP X~; ~CAL3639TMP y< 9318101 Nadler This is a request for shared instrumentation to image and quantitate ion levels and pH in physiological studi ( 0 & ( !` ! F ( 0 ( 3 Times New Roman Symbol & Arial 1 Courier 9 " h % % = abstract Deseree King, BIR Deseree King, BIR